Phylogenetic Analysis and Plant Breeding Systems: A Symposium to be Held at the 1992 AIBS Meetings; Honolulu, Hawaii; August 9-13, 1992

In recent years there has been a resurgence of interest in phylogenetic reconstruction. Molecular techniques have provided a wealth of new and promising approaches for understanding phylogenies, and the application of phylogenies, and the application of phylogenetic analysis to a diversity of interesting biological questions is becoming common. The purpose of this symposium is to assess the utility of phylogentic analysis for studies of the natural history of plant breeding systems. Topics included in the symposium include the radiation of pollination systems, mechanisms in conifers that compensate for strong inbreeding depression, the origin of self- incompatibility and floral trimorphism in a tristylous family, the origin of outcrossing from selfing in a hermaphroditic, self- compatible species, the origin of androdioecy from dioecy, and the origin of dioecy from hermaphroditism.